Extremal Combinatorics at Illinois (EXCILL)

Combinatorics is the study of existence, enumeration, and
optimization of discrete configurations. A rapidly growing part
of mathematics, it has applications in computer science,
operation research, genetics, and other natural and social
sciences. These fields in turn generate many challenging
combinatorial problems. This project emphasizes the optimization
or ``extremal'' aspects of combinatorics. It supports a
conference on extremal combinatorial problems, entitled
``Extremal Combinatorics at Illinois'' (EXCILL), hosted by the
Department of Mathematics of the University of Illinois at
Urbana-Champaign on November 18-20, 2006. The organizing
committee consists of J. Balogh (Secretary), Z. Furedi, S.
Hartke, A. Kostochka, and D. B. West.

Topics to be discussed include extremal set theory, coloring
theory for graphs and hypergraphs, Ramsey theory, cycles in
graphs, discrete geometry, and probabilistic methods in
combinatorics. There will be six main lectures delivered by
leading experts in the field and more than 15 additional invited
talks. Speakers will include senior researchers and rising stars
from around the world and from a variety of backgrounds. The
conference will be a major event in the Discrete Mathematics
community. Participation by graduate students and young
researchers will be encouraged and supported to help develop
the next generation of researchers.